A Magnetometer Array on the Greenland Ice Cap (MAGIC) to Investigate Propagating Ionospheric Current Systems

ABSTRACT This award is to establish unattached, automatic, magnetic data collection platforms in the Greenland ice caps and the analysis of the data acquired from the stations. This grant is part of the GEM (Geospace Environment Modelling) program. The scientific objective is to investigate small-scale propagating magnetic disturbances which appear to result from moving filamentary field-aligned currents interacting with the ionosphere. These structures have been classified and the origin of the field-aligned currents appear to be near the dayside magnetopause boundary layer. The proposed stations in combination with the existing west and east coast Greenland magnetometer station will help to identify the generation region for these currents, and investigate the motion and spatial evolution as they propagate anti-sunward onto field lines which stretch deep into the Earth's magnetotail. ***//